A Study of Conceptual Mechanical Design Process

The initial stage of the design process, when a designer first starts to generate ideas, is not well understood. Often referred to as conceptual design, during this stage the designer generates a multiplicity of designs and variations on designs, most of which are never verbalized or formalized. This phase of design will be investigated by studying the knowledge procesess and heuristics that form its components. The method will be to present selected mechanical design problems to experienced designers and to novice designers. By analyzing the processes used by experienced and novice designers, the investigators will determine which of the functional aspects are part of the inherent knowledge base and which are acquired through training and experience in design. The design language and its perceptual connotations will also be studied.